CAA: A Plant Genomics Research and Training Career Advancement Program

Scientists at the Kansas State University Plant Resistance to Insects
Laboratory have identified several molecular markers linked to genes
expressing resistance to the Russian wheat aphid, a serious pest of cereal
grain crops in Africa, North America, and South America. In order to
conduct more detailed research, the Principal Investigator of this Minority Career Advancement Award, Dr. Smith, will obtain hands-on research training
in the use of RFLP marker linkage analysis, cDNA cloning, and cDNA and BAC
sequencing. The specific new skills to be acquired will be plant RNA and
plasmid DNA isolation, Southern and Northern blotting and hybridization,
construction of a subtractive cDNA library, and sequence analysis of DNA
clones. Experiments will be conducted during the training that will provide
information about the linkages of various RFLP loci to the Dn6 Russian wheat
aphid resistance gene, and initial information about possible DNA sequences
related to Dn6. Thus, this information will serve as a starting point for
further research on aphid resistance gene sequences. Dr. Smith will also
attend a course in bioinformatics at Kansas State University and attend two
continuing education conferences which emphasize bioinformatics. Knowledge
gained from these educational activities will be used to update three
courses dealing with plant resistance to pests in which Dr. Smith serves as
instructor or co-instructor. Information and experience derived from the
research and training objectives of the current proposal will provide
students enrolled in these courses current information on plant genomics,
bioinformatics, and gene sequencing.

RFLP - restriction fragment length polymorphism; cDNA - complementary DNA;
BAC- bacterial artificial chromosome